The Influence of In-Situ Photoexcitation and Electric Field on Ion Implantation Damage Accumulation in Silicon

Basic research studies to address issues of both fundamental and practical importance concerning primary physical processes which influence the type, density and thermal stability of ion implantation induced defect accumulation in silicon will be conducted. The approach utilizes photo-injection of electron/hole pairs, coupled with either an intrinsically built-in electric potential, or a secondary externally controlled vertical or lateral electric field, during implantation to modulate and control the density, lifetime and complexing behavior of point defects. %%% This research addresses basic aspects of silicon processing fundamentally related to advanced device and circuit fabrication. The innovative research proposed offers possibilities for significant improvements in devices and integrated circuits used in computing ,information processing, and telecommunications.